C3 - The Next Steps

9155337 Shultz Orange County Superintendent of Schools Office is conducting a three-year school-based staff development project for high school mathematics teachers in eight selected schools in Orange County. The first summer four teachers selected from each of the eight schools will participate in a summer program involving examination of new and innovative instructional materials, development of instructional units, trying out the materials and units in a laboratory summer class of students who have completed eighth grade, and working with university mathematicians to better understand the mathematics concepts woven into the new curriculum. During the following school year, the teachers will be given the time and support necessary for them to assume leadership in the incorporation of the new curriculum in their schools. In subsequent years additional teachers will be brought from the targeted schools will be brought into the program, with preceding participants serving as mentors for the new participants. The goal of the project is to achieve full participation and significant change in the mathematics programs and teaching at each of the eight schools and to study the processes inherent in such change. The budget requested for the project is $768,763, and cost share provided by the districts is $284,508, or 37% of the requested budget.